NECO: A Proposal to Fund Student Travel Grants To Attend MobiCom 2008

The proposal requests partial support for students to participate in MobiCom 2008 in San Francisco, Sept 14-19, 2008. The NSF support will provide opportunities for twenty young participants to interact with established researchers. MobiCom 2008 introduces a high caliber forum for research on systems issues in the emerging area of mobile, wireless communication and computing. The research and development results reported in MobiCom conferences span multiple disciplines, including wireless communication, vehicular communications, personal area networks, ad hoc networks, operating systems,

The broader impact of the proposal is to provide providing graduate students conducting research in the mobile computing field the opportunity to not only attend high-caliber technical presentations and be exposed to the state-of-the-art research in the field, but also to interact with peer graduate students world-wide, to meet with senior leading researchers in the field, and to take part in discussions that are likely to shape their future careers.